Using Multimedia and Distance Learning Technology to EnhanceElectronics Engineering Technology Programs, Instruction, and Access in Georgia Technical Institutes

The project is a collaborative effort by six technical institutes, a public land grant university, a state department of technical and adult education, and industry representatives to develop applications for multimedia and distance learning technologies in Electronics Engineering Technology associate degree programs in Georgia. Forty-eight technology faculty will be trained in multimedia applications. A Curriculum Development Team of technology faculty, industry representatives, and instructional technology specialists will create multimedia applications for four technical, math and physics courses in the electronics eneineering technology program. Project objectives target curriculum materials development, faculty enhancement, student access through distance education, and industry involvement. Teaching/learning problems addressed by the project include diverse academic preparation, background and learning styles of students at technical institutes; the impracticality of time and placebound instructional delivery for adult students, the fast-changing technology and knowledge base in engineering technology fields, and faculty need to diversify teaching approaches and uses of instructional technologies available in Georgia.